Teaching Science Outdoors: A Next Generation Approach for Advancing Elementary Science Teaching in Urban Communities

This project addresses a long-standing challenge in science education centered on providing meaningful science education opportunities to students living in communities of high poverty and attending under-resourced elementary schools. These students are significantly less likely to receive high-quality science learning opportunities and to be encouraged to engage in (rather than simply learn about) science. This Michigan State University research project is designed to enhance the capacity of elementary teachers in high-poverty urban communities for enacting Next Generation Science Standards (NGSS) -aligned science approaches using the outdoors as part of their classroom. It builds on and advances prior outdoor education work for the current context of science education that requires elementary teachers to engage students in making sense of phenomena using next generation science and engineering practices. The goal of this project is to advance elementary teachers' pedagogical practices and determine how this affects cognitive and non-cognitive learning outcomes of their students, particularly those who are traditionally marginalized in science classrooms. It also will advance knowledge on ways to bridge informal and formal learning environments. To achieve these goals, the project will develop, enact and study a program that involves a scaffolded series of summer professional development sessions focused on outdoor learning and school year follow-up meetings and classroom-based coaching for elementary teachers and informal educators from two high-need districts.

Design-based research will be utilized to: 1) foster teacher practices and study how these develop over time, 2) work with teachers to measure student outcomes, and 3) determine what aspects of this formal/informal approach are productive, measures of student engagement and student learning artifacts--will be analyzed. The project will serve as a model for developing partnerships between informal science organizations, educators, and K-12 programs. Revised measures and outcomes of teacher practices and student learning; outdoor-focused lesson plans; cases illustrating how elementary teachers develop and enact NGSS-aligned outdoor lessons; a revised informal-formal theoretical model; and information about dissemination of products including facilitation guidelines and coaching approaches will be developed and disseminated.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.